Travel: NSF Student Travel Grant for 2026 IEEE Symposium on Visual Languages and Human-Centric Computing (VL/HCC)

This grant will partially support travel and attendance for eligible students enrolled at US universities to attend the Graduate Consortium (GC) at the IEEE Symposium on Visual Languages and Human-Centric Computing (VL/HCC) to be held on September 29 – October 2, 2026, in Paderborn Germany.
VL/HCC is the premier international forum for research on the design, theory, application, and evaluation of computing technologies and programming languages that are easy for people to learn, use, and understand. The conference focuses on enabling more people to apply computational ideas and tools of programming in a variety of domains, which makes it an important context to explore adaptable and customizable socio-technical systems. The VL/HCC GC promotes discovery and understanding by motivating student researchers to tackle open problems. The GC format emphasizes training and learning by incorporating experienced panelists who provide constructive feedback to student participants. Additionally, attendees at the VL/HCC and HCSE conferences will engage with GC participants, offering further insights.

The recruitment strategy will target graduate students from varied institutions and non-technical departments. The GC will also prioritize equipping participants with the skills to communicate their research effectively to a diverse audience of non-technical users, a crucial ability for aligning their work with the needs of the general public. Finally, the GC aspires to benefit society by stimulating research focused on helping individuals understand and influence the complex socio-technical systems that shape our modern world.